Connecting the Midwest Research Institute Computer Network To NSFNET

9503736 Swann This project connects the Midwest Research Institute to the Internet over a 56,000 bits per second line. The institute is installing a server to allow Internet access to its research results. Researchers at the Institute benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues ar other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.